Chemical Reaction Engineering VII: Computational Fluid Dynamics

PI: Sankaran Sundaresan
Institution: Princeton University
Proposal Number: 0087363

Multiphase reactors for classic applications such as fluid catalytic cracking are still evolving. Reliable multiphase reactor models that can be used with confidence for improving existing processes and scaleup of new processes can benefit greatly by applying the latest computational fluid dynamics (CFD) techniques.

This grant is to provide support to subsidize ten graduate students attending Chemical Reaction Engineering VII: Computational Fluid Dynamics, which will be held in Quebec City, Canada. The purpose of this conference will be to take stock of the state-of-the-art and identify critical physics and deployment needs for the next 5-10 years. The technical program will include plenaries by leaders in the fields of single-phase reacting flow and various multiphase flows and presentation by CFD vendors and industrial practitioners.